Society of Vertebrate Paleontology Workshop on Computerization: Austin, Texas; November 1989

This project will support a workshop on computer cataloguing at the November 1989 annual meeting of the Society of Vertebrate Paleontology, to be held in Austin, Texas. Computerization of vertebrate paleontological records has rapidly increased in recent years, but there have been no broad-scale efforts to coordinate the projects for the long-range purpose of exchanging information. The workshop will address this problem and will also investigate priorities for hardware and software implementation, development of ethics and standards, standardization of data input formats, and logistics of networking. The ultimate goal of the workshop is to develop an explicit set of guidelines and recommendations for institutions initiating or maintaining computerized database management of vertebrate paleontology specimens.